The Thermo-Chemical State and Thermo-Tectonic Evolution of Cratons and Deep Cratonic Lithosphere

Adrian Lenardic

A continental craton is a region that has remained tectonically stable for on
the order of a billion years. Many cratons are also associated with thick
lithosphere that has been isolated from mantle recycling for an equally long
period of time. Understanding the factors that provide for the stability of
cratons and for the longevity of deep cratonic lithosphere are related issues
that bridge the gap between studies of continental tectonics and of mantle
dynamics. To address these issues, the investigators will constrain the present day
thermo-chemical structure and explore the thermo-tectonic evolution of the
crust and mantle lithosphere below several cratons. They will work with
collaborators from Montreal and Australia to collect and compile data
constraints for thermal models of the cratonic lithosphere in the Canadian
Shield and in Western Australia. They will then develop data constrained models
for the present day thermo-chemical structure of cratonic lithosphere within
these regions. The heat that comes from the convecting mantle will be treated in
a fully self-consistent way and both vertical and lateral
variations in lithospheric structure will be explored. The researchers will also work directly with data oriented colleagues to collect, analyse, and synthesize all the data that can constrain the evolution of target cratons. They will then explore models of
coupled mantle convection and continental tectonics to isolate the factors that
allow for the longevity of deep cratonic lithosphere and the stability of
cratonic crust. This will be accomplished using a powerful new numerical
simulation tool that has been designed to bridge the gap between mantle
convection modeling and continental tectonics modeling. The advanced modeling
methodology, together with the data that will be brought to bear on the problem at
hand, will allow this team to develop rigorous and testable models that address the
cratonization of continental crust and the longevity of cratonic lithosphere in
a self-consistent manner.